Shell-Model Calculations and Experimental Frontiers in Nuclear Spectroscopy

This grant supports theoretical and experimental research in nuclear structure physics. Its focus will be on shell model calculations for light and medium mass nuclei far from the valley of stability, particularly those which might optimally be studied with radioactive beam experiments.